UNIDATA Equipment Grant: Developing Meteorological Analysis and Visualization Capability

This award will equip a meteorology laboratory with workstation facilities for both undergraduate and graduate instruction and for scientific research at the University of South Florida. The laboratory will be located in the Department of Geography, which has embarked on a long-term development of its remote sensing and Geographic Information Systems (GIS) laboratories.